Research Experience for Undergraduates Site

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. For a three-year period beginning April 1989, eight (8) undergraduate students will spend ten (10) weeks engaged in basic research in analytical, inorganic, organic, physical, and biochemistry under the direction of the faculty members in the Chemistry Department. A unique feature of this REU proposal is that only women and minorities will be recruited.